CSR---EHS Rapid Efficient Implementation of Communication Protocols for Embedded Systems

Many embedded systems rely upon communication systems to exchange
information and coordinate activities in distributed
applications. Developing communication systems which are fast,
reliable, energy-efficient and error-free is a challenge due to the
many trade-offs involved. Software implementations are often
inefficient due to poor coding practice.

This project is developing new ways to develop and implement
communication protocols for embedded networks using a building-block
approach. A tool is being developed which offers a collection of
commonly used protocol components which the developer tunes and
interconnects as needed for the application. The tool then generates
an efficient program from these components using software thread
integration. The tool also estimates protocol performance and
computational requirements, allowing system designers to have quick
feedback on the impact of design decisions.

A major goal of this project is making rapid prototyping of embedded
communication systems accessible to non-specialist researchers and
practitioners, as well as to address real-world problems. Two specific
applications are being used to promote these interdisciplinary
goals. The first application is ultrasonic marine biotelemetry, which
enables the analysis of movement, physiological function and behavior
of marine organisms. One team member is a marine biologist with
extensive experience in this area who is defining requirements and
guiding testing. The second application is structural health
monitoring (SHM) of bridges using wireless sensor networks. Another
team member is collaborating with civil engineers on an SHM project,
and leverages the sensor network protocol experience gained.